Geoscience Undergraduate Minority Scholarship and Mentor Program

9312930 Suiter AGI will continue and expand the scope of its geoscience undergraduate minority scholarship program with the addition of several new elements. In 1993-96, AGI will award 70 to 80 scholarships annually, with awards averaging $2,500 per award. The proposed program is national in scope with scholars being evaluated and selected through a competitive process. In addition to increasing the number of scholarships awarded, AGI will provide new features in the program that will address many of the recognized barriers to ethnic minority participation. AGI will also increase its monitoring and evaluation of the program through periodic and systematic review by participants, program staff, and advisory personnel.